IIS: Knowledge Representation and Reasoning Mechanisms for Explicitly Self-Aware Communicative Agents

This project is developing theoretical and practical
foundations for communicative agents that overtly exhibit
self-awareness. Such agents are aware of what they know
and do not know, what they can and cannot do, and what
intentions and assumptions underlie their inferences
and actions, and they show "presence of mind" in dialogue
interactions, recalling past experiences and reasoning
about the ongoing interactions. The theoretical ideas
under development for this purpose center around theories
of autocognitive knowledge and inference (knowing what
one knows and does not know, and how one acquires
knowledge), a new approach to integrating uncertain
inference with logic (quasi-probability theory), and
a form of "syntactically aware" metainference that
facilitates reasoning about a system's own knowledge
and special capabilities. The project uses the EPILOG
inference engine as a basis for experimentation, while
broadening that engine's capabilities. The knowledge
representation (episodic logic) used by EPILOG nearly
matches the expressive capabilities of ordinary language
and is thus well-suited to the inferential and dialogue
goals of this project. The results will include
demonstrable theories of self-awareness in artificial
agents, new methods of general autocognitive, uncertain,
and syntactically aware inference, and an improved
EPILOG engine. The results will be disseminated in major
conferences and journals for AI, agent and dialogue
research, and the improved EPILOG engine will be
generally available. In the longer run, the work will
help pave the way for a new generation of more human-like
interactive AI agents, in such areas as software support,
advice, tutoring, games, etc.